Career Access Opportunities in Science and Technology for Deaf Students

This model project was developed by the National Center on Deafness at California State University, Northridge. During the first year, learning experiences are being provided for elementary, junior high and senior high students to stimulate their interest in science and technology by providing deaf students with enhanced access to existing programs through the provision of interpreting sersvices. The emphasis on existing programs is to minimize redundancy while providing deaf students with access to mainstream programs. Plans for the second year and beyond will focus on reducing the attrition among deaf students at the postsecondary level. This will be accomplished by providing more intensive interpreting, notetaking and tutorial services for deaf students at California State University, Northridge. Additional services, provided in the form of specialized training for interpreters, will be made available to regional junior colleges. This will facilitate access to science and technology for deaf students on those campuses.